Fundamental Studies of Adsorption and Catalysis on Metal Surfaces by Scanning Tunneling Microscopy

Scanning tunneling microscopy will be used to study how low coverages of chemically active surface modifiers, to include sulfur, oxygen, and phosphorous, affect the adsorption and dissociation of small molecules of catalytic interest, such as carbon monoxide, methane, and methanol, on transition metal surfaces, such as molybdenum (100), tungsten (100), and nickel (100). STM will be used to image molecules and impurities, and to probe local variations in atomic geometry, electron structure, and work function. The goal is to control electronic structure modification, and the ability to tune chemical reactivity.